Supplementary Funding for Women, Minority and Handicapped Engineering Research Assistants: Axisymmetric and Asymmetric Thermal Plume Development from a Heated Disk

A theoretical and experimental study of thermal plumes arising from finite heat sources is conducted. The research is aimed at advancing fundamental understanding, but the study has significant relevance in the environmental and electronic cooling technologies. In the case of a horizontal, upward-facing heated disk, the preliminary study indicates the importance of the developed thermal plume and the near-disk flow. The near-disk region can be characterized by a boundary layer analysis which connects with the analysis of the entrainment flow above the boundary layer. The study predicts analytically the local and averaged disk and plume analyses. The theoretical study is supported by three-dimensional full field temperature data obtained using holographic interferometry and thermocouple probes.